Workshop: Exploring US-Romanian Collaboration in Language Technology

This proposal requests support for a workshop to be held in Durau, Rumania, in July 1999 to explore the need for and advantages of international cooperation in language technology between US and Romanian researchers. The goals are to look forward to the preparation of Cooperative research efforts between the two countries.